Instrumentation for Multidimensional Digital Signal Processing Laboratory Program

The development of sophisticated yet inexpensive integrated circuits and the associated development of microprocessors have made it possible to find feasible solutions to complex problems in multidimensional signal processing using state-of-the-art microcomputers with specifically designed peripherals. Senior undergraduate laboratory projects will be developed based on such microcomputers equipped with application oriented hardware and software for signal processing 1-D and 2-D. Twenty sets of state-of-the-art, compatible microcomputers and peripherals such as video digitizers, image acquisition and display units, motherboard packages including development system for DSP systems that allow 1-D signal processing and real-time parameter modification will be acquired. This laboratory program will enable senior students to have hands-on experience in various applications of digital signal processing, image analysis and computer vision to complement multidimensional signal processing courses and project laboratories. Such practical experience will provide the students with a better background for future work in solving present problems in multidimensional signal processing ranging from speech synthesizers to automated image matching and analysis.